Summer Institute in Computing, 1988, Pittsburgh Supercomputing Center

The Pittsburgh Supercomputing Center proposes a two-week intensive training/education session for twenty students. In addition to instruction in the mechanics of effective use of a vector supercomputer, students will be exposed to other aspects of the field such as multiprocessing, numerical methods, data communications, graphics, and an assesment of future trends. Lectures from practicing computational researchers will be included. The course will focus on the use of the PSC's Cray XMP48 supercomputer. Each student will have a DEC Vaxstation 2000 graphics workstation which will be connected to the PSC system. The students will be divided into three teams, each of which will have a major coding project to complete during the two weeks of the Institute. To insure the interest of all students, the projects will focus on the solution of partial differential equations in fluid dynamics, a mathematical technique used in many scientific and engineering disciplines and common in advanced computations. This is a strong proposal; an award in the amount of $40,000 is recommended.